MRI: Acquisition of a Multifrequency Phase and Modulation Fluorimeter

This Major Research Instrumentation award funds the acquisition of a
multifrequency cross-correlation phase and modulation fluorimeter at the
University of Kentucky Center for Structural Biology. The fluorimeter
is used to study the structure, stability and interactions of proteins
and other biological macromolecules. Major experiments that will be
performed with the fluorimeter include fluorescence resonance energy
transfer, providing information on the distribution of distances between
fluorophores attached to biomolecules, and anisotropy (polarization), to
study interactions between biomolecules. Some of the molecules of
interest in these studies include neurolysin, neuropeptidase, and
nitroreductase. In addition, the instrument is available for use by
investigators at other regional institutions and used in the annual
Biofluorescence Symposium at the University of Kentucky. The results of
these research and teaching efforts will be broadly disseminated through
abstracts and peer reviewed publications, as well as by active
participation of students and faculty at professional meetings.